Student Research Workshop in Computational Linguistics, at the COLING-ACL 2006 Conference

The Association for Computational Linguistics (ACL) and the
International Committee on Computational Linguistics (ICCL) are two
primary international organizations in the field of natural language
processing and language engineering. For over forty years, the two
organizations have sponsored conferences to facilitate the exchange of
research ideas. This year, the two organizations will co-host a joint
conference from July 17th to July 21st, 2006, in Sydney, Australia. It
is the major international conference for the field. This award
subsidizes the expenses for students selected to participate in the
Student Research Workshop associated with the main COLING-ACL
conference. The students-only workshop allows participants to present
their research and receive feedback from a panel of established
researchers in the field. The forum provides students the opportunities
to gain exposures to external perspectives on their work at a critical
time in their professional development. The intimate format encourages
students to begin building rapport with established researchers. The
Student Research Workshop contributes to the maintenance and development
of a skilled and diverse computational natural language workforce,
helping to produce a pool of future researchers for Natural Language
Engineering. The workshop encourages a spirit of collaborative research,
and builds a supportive environment for a new generation of
computational linguists.